DEM: Hear Our Voices: Girls and Technology at the Computer Clubhouse

Hear Our Voices is a Demonstration initiative that links twenty Clubhouses from the
Computer Clubhouse Network in creating new opportunities specifically for girls and
young women, to develop fluency with computer technology, and to learn valuable career
and life skills as well. Hear Our Voices will serve as a model for the future in other
Computer Clubhouses in the Network, as well as like-minded informal educational
programs for girls and young women at other institutions.

Founded at the Computer Museum in Boston in 1993, the Computer Clubhouse has grown
into a Network of 48 Clubhouses in 13 states and the District of Columbia, plus 11
Clubhouses overseas, touching the lives of thousands of young people. The Computer
Clubhouses provide a successful, innovative, andempowering after-school learning
environment for young people (ages 8-18) from underserved communities. A safe and
welcoming milieu, skilled and caring mentors, and high-end hardware and professional
software tools help Clubhouse youth become confident learners through a variety of creative
computer applications.

The flagship Computer Clubhouse moved to the Museum of Science in 1999, when the
Computer Museum joined forces with the Museum of Science. Since then, the Network
of Clubhouses has grown rapidly; with the support of Intel Corporation and other
sponsors, more Clubhouses are now being planned and implemented. Based on community
interest and the success of the Clubhouse learning model in transforming young people's
lives, current plans call for growth to more than 100 Clubhouses by 2004. Located
primarily in youth-serving organizations such as Boys & Girls Clubs and Urban Leagues,
Computer Clubhouses serve inner-city neighborhoods as well as smaller communities
with a high proportion of under-served populations. The Computer Clubhouse community
is diverse, made up of African-Americans, Latinos, Asian-Americans, Native
Americans, recent immigrants, and Whites.

In an effort to recruit and retain more girls and young women in a field that has a
dearth of participation by women -computer technology - the flagship Computer Clubhouse
in Boston since 1995 has pioneered several programs especially for girls, providing them
with access to rich technology resources, female mentors and role models, a
community of peers, and a positive, creative, and supportive learning environment.
The new Hear Our Voices program will significantly expand the flagship Clubhouse's
programming for girls and young women, to 20 new venues and with new, locally-designed
programming. Specifically, it will enrich opportunities for girls in four ways:

*Twenty of the Computer Clubhouses within the United States will receive funding and
support to hire and train staff dedicated to gender equity and girls programming, and to
launch locally-based Hear Our Voices programs at their Clubhouses, including at least
one component of girls-only hours or days at each participating Clubhouse.
*Leveraging the experience gained at the flagship Computer Clubhouse, Network staff
from the Museum of Science will provide professional development and program assistance
for girls'programming to Clubhouse Coordinators across the Network.
*Building on the momentum and resources of the growing Clubhouse Network, a digital
network called the Clubhouse Village will support both a real and a virtual community of
Clubhouse youth. An area on the Village will be designated especially for girls'
activities, and the Village will also support interaction among staff and mentors for
mutual support and for sharing best practices. The Clubhouse Village will consist of a
secure, private Intranet, using Internet technology and tools to enable Clubhouse youth
to communicate with each other and collaborate on creative projects.
*The virtual community will be made more viable by a face-to-face gathering of
participating youth and staff at a Computer Clubhouse Youth Summit in the summer of
2004.